Role of Glycolysis in Hippocampal Synaptic Transmission

Nerve cells can only utilize glucose as an energy source through the process of glucose degradation known as glycolysis. The reason for this metabolic restriction is unknown. In addition to supplying energy to nerve cells, glucose is important for normal synaptic transmission in brain by being a substrate for neurotransmitter synthesis. This research project will examine how the process of glycolysis regulates cerebral synaptic transmission. Dr. Lipton will study whether glycolysis inhibits the formation of ammonia, a compound present in all cells using amino acid derivatives as an energy source. Traces of ammonia have been found to inhibit synaptic transmission. Electrophysiological studies, using hippocampal slices, will be conducted to test whether glucose metabolism is coupled to transmission by supplying energy in the form of ATP and whether glycolysis prevents ammonia build up. Results of this study will elucidate an important aspect of brain metabolism, and the etiology of several nervous system dysfunctions.